Support for Young US Scientists Attending the 2007 International Accelerator School for Linear Colliders

The International Accelerator School for Linear Colliders, will be held October 1-10, 2007 at the Ettore Majoran Center in Erice, Italy. This is the Second International School in a series that began in Sokendai, Japan, May 19-27, 2006, jointly organized by the International Linear Collider Global Design Effort (ILC GDE), the International Linear Collider Steering Committee (ILCSC) and the International Committee for Future Accelerators (ICFA). The school will cover a wide range of topics related to linear colliders, from beam dynamics to damping rings, and from superconducting RF technology to precise instrumentation. Support for graduate students to attend the school is provided through this award.